Applied Hyperbolic Partial Differential Equations

Abstract: 0405899, J. Rauch, University of Michigan

Applied Hyperbolic Partial Differential Equations

The principal investigator will investigate mathematical problems
involving hyperbolic partial differential equations. These equations
appear in the description of waves which propagate with finite speed,
for example acoustics, electromagnetism, fluid and aero dynamics,
plasmas, lasers, telegraphy, radio, television, cell phones, shock
waves, music, power lines, .... etc. Typical mathematical problems
involve showing that specific problems, motivated by applications,
have solutions and studying their qualitative properties, for example
stability and methods for effective computation. A first set of
problems in the proposal concerns the damping of acoustic waves by
enclosing the acoustic cavity in a diffusive medium. Two situations
easy to understand are the protection of pilots and passengers in
airplanes from the noise of the engines and the absorption of sound in
a submarine so that it will not escape to the sea. There are also
applications to the automatic control of mechanical systems immersed
in fluids. A second problem concerns the scattering of solutions of a
strongly nonlinearly damped wave equation. A third problem is to show
that the phenomenon of continuum generation in focused laser pulses is
a consequence of nonlinear electromagnetic models without ionization.
Self focused laser beams exhibit continuum generation. The band of
frequencies present in the focused beam is much broader and spans a
continuum of frequencies (in contrast to a discrete set) than before
the focusing. Current explanations are frankly not very convincing.
This is a fundamental problem long recognized in the laser physics
community. It is a place where mathematics may add important
insights. Focused beams are used in many situations including a
surprising application to reduce resistance in hypersonic aircraft.

The proposer will study the behavior of solutions of the differential
equations that govern the propagation of waves. One problem
investigated is how well sound can be excluded from a region by
enclosing the region is an absorbing layer. Here the absorption in
the layer is supposed to be of a diffusive nature, like one would have
for a gel. Applications include sonic insulation of airplane
fuselages and submarines and the control of immersed mechanical
systems. A second problem to be studied is that of white light
generation in focused lasers. When high power lasers focus, their
color changes from the color of the carrier frequency to nearly white
light. There are a variety of explanations of this, none very
convincing. The PI will try to find a better one. There is convincing
experimental evidence that the phenomenon does not require ionization
of the propagation medium and this will help to keep the equations
under study manageable and well founded.